Investigations of Feasibility of Active Memory Heirarchy Support for Computational Field Simulation Problems

Work in parallel processing for Computational Field Simulation (CFS) problems has highlighted the need for techniques to support efficient mapping of large dataspace problems between memory hierarchies in an efficient manner so that data is available to the processors when they are ready to use it. Typical memory hierarchies to date have good support for programs with small working-set sizes and good locality of reference. Problems in the CFS domain typically deal with huge data-sets and solution techniques which make passes over the entire data-set have very poor locality of reference. The focus of this research is an investigation into software techniques for allowing applications programmers to describe the data access patterns for their application to allow a hardware system to be built to efficiently manage the data movement between the different levels of a memory hierarchy to provide data to the processor at peak speed. This work will involve the simulation of this system so that its effective performance enhancements can be analyzed to determine the feasibility of such an approach.